2002 Gordon Research Conference: Research at High Pressure; Meriden, NH; June 23-28, 2002

This award provides partial support for the 2002 Gordon Research Conference: Research at High Pressure, June 23-28, Kimball Union Academy, Meriden, NH. This interdisciplinary Conference addresses new developments in fields such as physics, chemistry, earth and planetary science, materials science, and biology. Recent advances in high-pressure methods have led to the creation of new materials, and to opportunities to study physical, chemical and biological processes under high-pressure conditions. The Conference will feature invited talks in exciting new areas such as shock wave techniques, materials syntheses, high pressure liquids, nanomaterials, high pressure biochemistry, sampling the deep Earth, new synchrotron and neutron experiments, high-pressure superconductivity, and new metallic behavior at high pressure. Opening and closing sessions will feature provocative talks to provide challenges and opportunities for theory and experiment in high pressure research. The NSF funding will facilitate participation by students and junior scientists, as well as "newcomers" to the high-pressure field. The Conference is supported by the Condensed Matter Physics Program, the Solid State Chemistry Program, and the Petrology and Geochemistry Program.